New Polymerization Reactions

The focus of this research is to use the polymerization of ylides by trialkyl boranes for the controlled synthesis of linear and cyclic hydrocarbon polymers. The attributes of this methodology are the ability to control molecular weight, to prepare functionalized polymethylene derivatives and novel architectures and polymethylene copolymers. Because of the importance of the closely related polyethylene, these functional materials have potential value as compatibilizers, blending agents and surface modifiers.

With this award, the Organic and Macromolecular Chemistry Program is supporting the research of Dr. Kenneth J. Shea of the Department of Chemistry at the University of California, Irvine. Professor Shea will focus his work on the development of new polymerization reactions for the preparation of substituted carbon backbone polymers. The development of new catalysts for these reactions will contribute to the mechanistic understanding of carbon-carbon forming reactions and can benefit both polymer and small molecule synthesis. The research is also an excellent arena for the training of graduate students.